A New Technique for Seismic Analyses of Nonlinear System

Most of the techniques used in solving engineering problems such as system identification are valid for linear systems. However, in certain engineering applications on nonlinear systems one must consider nonlinear effects. In addition input loading on some systems such as soil or building, offshore platforms etc., can be viewed as random and are usually difficult to predict or characterize by traditional means. This project is to develop a general system identification approach to characterize and analyze nonlinear systems with unknown and unmeasured random input. The proposed studies will extend and verify the effectiveness of the random decrement technique to cover the non-stationary cases. Such applications make it possible to use this procedure to analyze nonlinear system problems. In addition the nonlinear form of the system and system signature will be identified from the measured system responses without knowing the random input. The effectiveness of this general approach will be investigated by laboratory simulation. The new technique developed would improve our ability to investigate and predict the seismic response of soil and building taking into account the nonlinear effect of the soil-building system.